Consortium Development of Diamond Vertex Tracking Detectors in Elementary Particle Physics

9871116
Schnetzer
Funding is requested by research groups from Rutgers and Ohio State Universities to study properties of and develop a detector that is positioned close to the interaction region of Colliders, the primary accelerator facility of high energy physics. The proposed detectors are constructed by use of Chemical Vapor Deposition techniques, which results in a film diamond, a substance that can withstand the high doses of radiation produced by high luminosity collisions. Such detectors are critical to the next generation of collider experiments in elementary particle physics.